Computational and Algorithmic Representations of Geonetric Objects - CARGO: Folding and Unfolding Processes for Polygonal Linkages, with Applications to Robotics and Biology

Abstract for DMS - 0138374

This incubation project plans to start an interdisciplinary collaboration
whose goal is the understanding of folding and unfolding processes for
polygonal linkages and other related structures.

We plan to investigate the topology and the algebraic-geometric structure
of configuration spaces of two- and three-dimensional serial linkages, via
generalizations of recent successful rigidity-theoretic approaches based
on pseudo-triangulation mechanisms, and to advance the understanding of
the global structure of the associated configuration spaces. The
rigidity-theoretic techniques have allowed the definition of 2-d motions
that are purely expansive or contractive: the former can guarantee that a
chain will not self-collide. We plan to extend these techniques to three
dimensions and subsequently develop efficient data structures and
algorithms for planning, analyzing, approximating, tracking and querying
such motions.

We expect that folding problems, beyond their intrinsic mathematical
interest, will lead to techniques that will impact areas such as molecular
biology, where the protein folding problem is of central significance, as
well as robotics and micromechanics, where modular kinematic mechanisms
(with possibly large numbers of links) are often employed. The common
denominator of these endeavors, and our main theme, is the general
question of planning and reasoning about collision free motions for serial
linkages of various kinds.